Characterization of the Groundwater Pollutant Potential of Residential Solid Wastes

This research effort will characterize the composition of household solid wastes in terms of their potential for contamination of groundwater when placed in landfills, and in reducing or eliminating that potential by design of appropriate collection and management procedures. Prior work conducted by the investigator established procedures for field sampling and statistical correlation of data from household sources for a determination of information regarding nutrition, interview survey bias,resource conservation and recycling, market research and solid waste management. In this project, the investigator plans to extend this method to include issues in household solid waste management that relate to their potential for contamination of groundwaater.